The Design of Asynchronous Circuits and Systems with Emphasis on Correctness and Proven Optimizations

Brunvand This research merges two efforts in asynchronous circuit compilation. These are the work of Gopalakrishnan on the language hopCP and its use in verification; and the work of Brunvand on asynchronous circuit compilation. The research is: 1. enhancing the expressive power as well as the semantic clarity of concurrent hardware description languages for asynchronous circuits and systems; 2. extending the formal basis for compiling from HDL's to circuit designs; 3. formally characterizing and improving the optimizations used in asynchronous circuit compilation; and 4. studying the performance of implemented circuits with regard to a variety of parameters.